Providing Discoveries in Chemistry for Elementary School Children

Providing Discoveries in Chemistry for Elementary School Children is a three year project of the University of Southern Mississippi which will provide 180 teachers of elementary students with preparation on how to use low-cost activities which develop an introduction to chemically related physical science concepts. Six-week summer sessions will be held for primary grades and for intermediate grades. A master high-school chemistry teacher and an administrator will be members of each team from each of 18 participating school districts. They will be involved in the orientation, planning, implementation and follow-up evaluation phases of the project.